Algorithmic Scalability in Reconfigurable Bus-Based Models

For a model to be a workable component of a parallel processing system, it must be scalable. Researchers often design algorithms so that the assumed machine size for running the algorithm grows with the problem size. (This is particularly the case with algorithms for reconfigurable busbased models.) A physical machine size is, of course, fixed. For a scalable model, however, the arbitrary sized machine for running the algorithm can be mapped to the smaller physical machine that actually solves the problem without loss of efficiency. A compiler can perform this mapping, so algorithm designers and programmers can design algorithms for arbitrary size machines and need not design different algorithms or write programs for different sized problems. No reconfigurable bus-based model is known to be scalable, however, unless its computational power is significantly reduced. To better understand the extent to which these models are scalable, the investigator is less restrictive than traditional scalability. This research will investigate scalability of two main types of reconfigurable bus-based models, namely, the Reconfigurable Mesh (R-Mesh) and the Reconfigurable Multiple Bus Machine (RMBM). The RMBM comprises four versions: the B-RMBM, S-RMBM,F-RMBM, and E-RMBM. The investigators have previously established relative scalability results for the S-RMBM and for `separable` algorithms of the E-RMBM, the most powerful version. The research will seek to investigate scalability of general E- RMBM algorithms and study different scalability approaches for different ranges in the relationship of simulated to available machine sizes. Scalability questions for the R- Mesh will also be investigated. These will include relative scalability and scalability of certain classes of algorithms, topics not yet examined for the RMesh, and extensive attempts at complete scalability of the RMesh, a topic that has received only to narrow attention in the past. Scalability questions will also be studied for directional versions of the R-Mesh and RMBM, which have proven particularly useful for directed graph algorithms.